Research Experience for Undergraduates at the University of Utah

The University of Utah is being supported to establish a Research for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under the supervision of experienced research chemists. The program will support about 7 students for the summer of 1987, of which almost half will be recruited from other institutions. Research activities will include the following: o Field-Flow Fractionation o Carbene Chemistry o Quantum Chemistry o Phosphorous-Containing Rings of Biological Interest